Mathematical Sciences: Discrete Groups and the Geometry of Complex Hyperbolic Space

9404174 Miner The scope of the research entails problems related to the geometry and topology of complex hyperbolic spaces and group actions on these. Curvature invariants can be used to distinguish between certain equivalences classes of manifolds modeled on the boundary of the latter. Further questions concerning the geometry of Heisenberg space will be pursued. This research may have potential applications to mathematical physics. ***